Ultrahigh Polarization Ferroelectric Liquid Crystals for Voltage Limited Electro-optic Modulators

This SBIR proposal is aimed at (1) the synthesis of new ferroelectric liquid crystals with ultra-high polarization, chemical stability and low viscosity, and (2) suitable modifications that yield functional materials with broad operational temperature ranges and fast electro-optic response times for use as components in commercial ferroelectric liquid crystals devices that are direct-drive or voltage limited.